RIMI: DYNAMIC PROCESSES IN DISORDERED SYSTEMS

9450342 The proposed research would apply statistical mechanics methods to analyze various properties of diffusive motion in disordered systems. Properties such as reaction rates, displacement moments, mobilities and distances between mobile reactants and fixed traps will be evaluated. The overall goal is to create a strong condensed matter theory group, which would provide solid research experience and motivation to students,furnish support to experimentalists in material sciences, and strengthen the cooperation with other institutions.